Seismicity of the Nordic Mid-Ocean Ridges: New Constraints from Norwegian Seismic and SOSUS Hydrophone Arrays

9314502 Orcutt The broad motivation for this study is to further understanding of the relationship between the nature of the seismicity (depth, mechanisms, spatial-temporal behavior), the character of ridge axis morphology, and the generation of acoustic T-waves along the Iceland-Svalbard plate boundary. The recent availability of several new seismic/acoustic data sets provides an exciting opportunity for a well-constrained investigation: the Norwegian land-based seismic array data, the U.S. Navy hydrophone array data, and detailed data on the plate geology and tectonics.